Acquisition of a Protein Microsequencer, Peptide Synthesizer, Microbore HPLC, and Oligonucleotide Synthesizer

The principal investigator requests funds to purchase a protein microsequencer, a peptide synthesizer, a microbore HPLC, and an oligonucleotide synthesizer for a new Protein and Nucleic Acid facility in the School of Medicine. The instrumentation will be used by researchers involved in studies of proteins and genes of biologial interest. The instrumentation will permit sequencing of micro quantities of proteins from 2-D gel spots, or from other purification procedures, and will allow production of antipeptide antibodies to defined regions of proteins and the synthesis of oligonucleotide probes. This instrumentation, along with a protein data base comnputerized workstation for analysis of 2- dimensional gels already set up in the Department of Biochemistry and Biophysics, will contribute to the development of a fully integrated protein and nucleic acid purification and microanalytical capability at the University of Pennsylvania.